American Indian Schools: Math and Science Teacher Enhancement

The American Indian Science and Engineering Society (AISES) offers a three-year program to enhance the mathematics and science knowledge base as well as the teaching strategies of teachers of American Indian students in grades three through five. As a minority among minorities, American Indians are underserved in mathematics and science education and thus underrepresented in the science professions. Effective instructional strategies, responsive to the learning style and cultural values of Indian students, need to be implemented. This project will provide a large step toward accomplishing that objective. Twenty four elementary teachers from eight schools will be selectively recruited from regions of northern New Mexico and northern Arizona that serve Indian students. Three elementary teachers per school plus one high school mentor, well trained in science and/or mathematics, from the same district, will participate, as a team, in a four-tiered enhancement project which includes a three-week summer workshop per year, monthly inservice sessions during the academic year at each of the eight participating schools, a joint two-day Leadership Seminar each academic year and program staff visits to the classrooms of the participating teachers to ensure implementation of the curricular material and new teaching strategies. The workshops are based on a previously successful model which brings students in during the mornings of weeks two and three. The communities are committed to the education of its students and are bearing all the costs for the students' activities. The workshop topics integrate science, mathematics and writing in a culturally appropriate context. AISES has produced, with NSF funding, the Hands On, Minds On materials that will be used as the basis for the science activities. The staff for the project draws heavily on American Indian scientists, mathematicians and educators, thus providing role models for both teachers and their students. Cost-sharing from the communities being served is equivalent to 6% of the NSF request. ***//